A Computer Based Method To Measure 3-D Displacements and Strains in Structures

The design and maintenance of structures requires the help of sensor technology to measure the parameters that control their integrity. Although important advances have been made in the area of sensors, measurements are limited to point determination or to two dimensional geometries. A very successful approach to integrate optical techniques that measure structural properties and current computer technology has been carried out. The developed techniques yield full field analysis and have been applied to important technical problems. However these methods are limited to two dimensional geometries. A very important step in their application to in-service structures is to add three dimensional capabilities. In the proposed work the experience so far accumulated in this area will be utilized: a. to develop 3-D techniques to measure displacements and strains in structures; b. to achieve real time or quasi-real time operation; c. to apply these developments to structures. These new technologies will have considerable potential in increasing the range of application of optical techniques to include monitoring the integrity of in-service structures. In addition structures and their components may be analyzed in testing stands under load representative of the service conditions. Results of the successfully completed research are likely to stimulate engineering research activities by reducing drastically time required to evaluate experimental data and to test their reliability, and by enabling the researcher to pay more attention to underlying theoretical issues.